Acquistion of Computer Automated Zero Field AC SusceptometerResistivity Instrumentation

This project will provide a computer automated, zero-field AC- susceptometer with four probe AC-resistivity and a I Tesla superconducting solenoid, allowing magnetic phase diagram determinations of materials over moderate applied fields. This instrumentation will be used in a variety of new and continuing research areas for which magnetic susceptibility and/or resistivity measurements play a crucial role. Specific projects include (A) general characterization of high temperature cuprate superconductors, (B) field induced orientation of polycrystal mosaics of high Tc superconductors, (C) non-linearity and frequency response of the magnetic behavior of high Tc superconductors, (D) magnetism and transport properties of conductive organo-metallic polymers based on valence averaged binuclear metal aggregates, (E) low temperature zero field susceptibility and Ho vs T phase diagram behavior of complex flourides of high spin Iron III. This instrumentation is not presently available at Northeastern University. It will be shared by faculty in the Chemistry and Physics departments, and will be made available to other users as needed.